Basic Seafloor Reconnaissance of T-Phase Data from the NOAA Autonomous Hydrophone Array: Assessing the Nature of Magmatic/Volcanic Events on the East Pacific Rise

The NOAA VENTS Program has deployed a series of hydrophone arrays in the South Pacific and these arrays have recorded several seismic swarms on the East Pacific Rise. Seismic swarms located at 3 degrees 25 minutes north, at 9 decrees south, and at 22 degrees south are interpreted as magmatic or volcanic. This project will reanalyze the t-phase seismic data dn refine the epicenter locations, and then collect a baseline geologic and geophysical data set to ground truth the seismic data.